Travel: NSF Student Travel Grant for 2026 International Symposium on Computer Architecture (ISCA)

The International Symposium on Computer Architecture (ISCA) is a premier symposium that brings together researchers in fields related to processor architecture, compilers, chips and systems, for technical exchange on current areas of architectural challenge. This award provides travel support for up to 15 students attending this flagship conference, which will be held June 27–July 1, 2026 in Raleigh, North Carolina.

Supporting students to attend the 53rd International Symposium on Computer Architecture enables them to learn directly from leading experts in the field by attending technical sessions, keynote talks, and interactive events throughout the conference. The technical program will present the latest advances across a wide range of topics, including processor microarchitecture, memory and storage systems, machine learning hardware, security, and emerging computing paradigms. Keynote presentations will highlight both recent breakthroughs and emerging challenges shaping the future of computing systems. Through these sessions and discussions, students will gain exposure to cutting edge research ideas and methodologies. In addition, networking opportunities during workshops, tutorials, and social events will allow students to interact with senior researchers and industry practitioners, helping them develop professional connections and deepen their understanding of the field.